SBIR Phase II: Highly Parallel and Sensitive Holographic Planar Waveguides for Fluoroimmunoassay

9402996 Ho This SBIR Phase II project is for the continued development of a very sensitive and portable fluoroimmunoassay device that uses disposable cells having a polymer antibody support capable of multichannel multicomponent analysis. These devices are potentially useful in many medical and clinical diagnostics seen in intensive or emergency care patients. Physical Optics Corp. will develop a highly parallel and sensitive fluoroimmunoassay holographic optical waveguide for the monitoring of biological systems. This unique latex-based waveguide has excellent optical quality and an established immunochemistry, making it stable and reliable for sensing applications because the polymer-based waveguide probe is inexpensive and disposable, and the waveguide cartridge is suitable for one time assay. During the Phase II program, the proposed system will be specifically used for therapeutic drug monitoring. ***